Environmental Cyber-infrastructure Needs for Distributed Sensor Networks Workshop; San Diego, CA; August 2003

The project consists of a workshop designed to address the widely recognized cyberinfrastructure issues associated with distributed, networked, observing systems. The goals of the workshop are to refine the definitions of these issues, to search for solutions to these issues, and to catalyze collaborative research between engineers, environmental scientists, computer scientists, statisticians and mathematicians to address these issues. Results will be published both in print form and via the web. As well as bringing together a diverse range of disciplines, the workshop will also include participation by graduate students and international experts. The latter reflects the increasingly international nature of the collection and use of research data in the environmental sciences.